Educational Outreach: Teaching Nanotechnology Session

This award provides funding to the University of South Florida, Norma Alcantar, Principal Investigator, for the support of a session dedicated to Educational Outreach: Teaching Nanotechnology, at the Nanoscale Science and Engineering Forum during the 2005 Annual Meeting of the American Institute of Chemical Engineers (AIChE), October 30-November 4, 2005.